Geometry and topology of moduli spaces of holomorphic dynamical systems

Progress in modern science and technology relies on understanding how complex systems evolve, how they respond to changing parameters, and how large-scale patterns emerge from simple rules. Mathematics provides the conceptual foundations for this understanding, and moduli spaces are among its central tools. This project studies moduli spaces arising from holomorphic dynamical systems, where repeated application of simple complex-valued rules produces intricate long-term behavior. The project advances the mathematical foundations of dynamical systems, geometry, and topology, areas that support long-term national priorities including scientific discovery, technological innovation, data-driven modeling, and AI. The project also strengthens the STEM workforce through graduate mentoring, research seminars, regional workshops, course development, and outreach activities at the University of Oklahoma.

The project investigates the geometry and topology of several moduli spaces in complex dynamics. The investigator develops pressure-type metrics for higher-dimensional holomorphic dynamical systems, studies metric completions of spaces of Blaschke products, relates polynomial-like tree spaces to tropical and non-Archimedean geometry, and analyzes polynomial shift loci using big mapping class groups. These directions aim to discover new structures in moduli spaces of holomorphic dynamical systems and to build bridges between complex dynamics, metric geometry and low-dimensional topology.